Mathematical Sciences: Lifting Properties of Hankel Forms and Applications

This project continues mathematical research focusing on the properties and applications of what is generally referred to as 'lifting.' By this one understands a framework in which a mathematical operation, applied to a certain set, can be shown to be the restriction of another mathematical operation applied to a larger set. In many important cases, the lifting clarifies properties of the original operation and allows one to predict other characteristics which were not evident in the restricted environment. Lifting can also show how disparate theories are parts of a larger whole. Work on this project concerns lifting properties of bilinear forms known as Hankel forms. Recent work established links between Krein's method of eigenfunction expansions in the integral representations of lifted forms to the Sz.Nagy-Foias lifting theory of positive operators. The approach to the research brings together the Lebesgue spaces in which the Hilbert transform acts continuously and dilation and lifting properties associated with scattering theory. A fundamental result motivating this investigation is the n-conditional lifting theorem which leads to an opportunity to attack the classical interpolation problems in product spaces, where the main tools of the theory of bounded analytic functions in one variable are just not available. A second group of problems centers on the band extension problem for matrices and related problems in control. This work seeks to extend the one-dimensional results of Gohberg which tell when bounded functions with prescribed negative Fourier coefficients exist. The question addressed in this work will be the multiparametric case, which can be phrased entirely as a problem in lifting theory. Other applications will be made to Hankel operators and the Hilbert transform on the n-torus, on the symplectic space, on the Heisenberg group and to the theory of non-stationary stochastic processes.